Photoreceptor Synaptic Ribbon Associated Proteins

This research examines molecules in the retina that participate in sight.
The retina is a thin sheet of nerve cells at the back of the eye that is five
layers thick. It processes information about light and sends it to the brain.
The molecules studied in this research are special proteins in the retina
involved in signaling the presence or absence of light at the first point at
which light is detected in the photoreceptor cell. The proteins make up a
microscopic structure in the photoreceptor called the synaptic ribbon.
Signals about the presence or absence of light are transmitted to the next
layer of cells by using the synaptic ribbon in an unknown way. The proposed
work will investigate this mechanism.
We have made special markers for this family of proteins. Each marker
attaches to proteins with specific weights, which is one of the properties we
use to tell the proteins apart. One of these markers, called the B16
antibody, recognizes a rare protein found only in the retina that weighs 54kD.
We have recently succeeded in separating the 54kD protein from the rest of the
retina. We will now sequence its amino acids as a way of identifying it and
understanding the function of this protein.
The second group of experiments will examine other proteins are related to
the one recognized by our B16 marker. One of these, called a focal adhesion
protein, may be involved in keeping the synaptic ribbon attached to the
presynaptic membrane. This is the place where information is transmitted to
the next group of cells in the retina.
In the third group of experiments we will use the electron microscope to look
at the position of these proteins within the synaptic ribbon. It is critical
that we demonstrate that the proteins are part of the synaptic ribbon within
the presynaptic terminal not postsynaptic to the photoreceptor or in the
extracellular space. In addition, we will examine the other proteins
associated with the synaptic ribbon with other biochemical methods.
When all the experiments are finished, we expect to have: 1) identified the
protein that our B16 marker recognizes, 2) learned the identity of the other,
related proteins in this family, and 3) shown that the B16 marker attaches to
a protein that is integral to the synaptic ribbon. This will advance our
fundamental knowledge about what the synaptic ribbon is made of and how it
works.